Trends in noncommutative geometry

Abstract

Award: DMS-0728322
Principal Investigator: Boris Tsygan, Dmitry Tamarkin

This award provides partial support for a conference at the end
of the emphasis year on noncommutative geometry at Northwestern
University. Its aim was to explore the interaction between
several directions in noncommutative geometry: index theorems,
noncommutative calculus and operads, relations to mathematical
physics, to number theory, and to the geometric Langlands
program. An important objective was to highlight the subjects
that are strong in the Chicago area (algebraic geometry, motives,
microlocal analysis, representation theory, geometric Langlands
program, mirror symmetry) and investigate their links to the
works in what is more traditionally considered noncommutative
geometry, and vice versa. For example, an algebraic approach to
loop spaces that is used in the geometric Langlands program and
in representation theory of real groups was compared to the
topological string theory which is related to algebraic topology
and mathematical physics, as well as to an approach to the
representation theory of p-adic groups. A relation was
established between these subjects, in particular string
topology, and current research on motives. Several approaches to
a conjectural relationship between noncommutative geometry and
mirror symmetry were presented.

Noncommutative geometry is an extension of the classical geometry
to "spaces" in which coordinates x, y, etc. no longer commute,
i.e. where the identity xy=yx is not necessarily true. Such
"spaces" abound in mathematics and physics. For example,
noncommutativity is the mathematical manifestation of the
Heisenberg uncertainty principle in quantum mechanics: if x
stands for a position of a particle and y for its momentum, you
cannot know precise values of both x and y. In a more
mathematical context, noncommutativity is an expression of the
fact that, if you apply two transformations to an object, the
result depends on the order in which you do it. Mathematical
situations where noncommutativity occurs have been known for a
long time but the idea to treat them as "noncommutative spaces"
and to study them by geometric methods is relatively recent. One
of the successes of this approach is a radical simplification of
the standard model in quantum field theory by means of allowing
the space to be noncommutative. The aim of the conference was to
compare several approaches to noncommutative geometry, as well as
its links to other areas of mathematics and physics. You can find
more information on the conference website at
http://www.math.northwestern.edu/~tsygan/conf